ARI: Collaborative Research Between Geological Sciences, Astrophysics, and Computer Science: Infrastructure Support for a Visualization Laboratory

9601802 Cuny, Janice E. Humphreys, Eugene D. University of Oregon Academic Research Infrastructure: Collaborative Research Between Geological Sciences, Astrophysics, and Computer Science: Infrastructure Support for a Visualization Laboratory This Academic Research Infrastructure award supports the development of high speed computational, networking, and graphics facility. The research projects supported by the facility include: 1. Geophysical studies of mid-ocean ridges. 2. Kinematic and dynamic modeling of the deformation of the western United States lithosphere. 3. Geological and environmental fluid mechanics. 4. Characterization of fault rupture and the recurrence behavior of large earthquakes: and 5. Retrieving and processing observational astrophysical data by representing it as a virtual N-dimensional universe.